White Dwarf Evolution and the Local Star Formation History

Because white dwarfs cool and fade very slowly, some of the oldest stars in the galaxy can still be observed. Such objects can be used to determine the age of the galactic disk and perhaps the halo. However, this depends on the physical laws which are used to calculate the cooling times. A new set of models with improved input physics will be constructed and applied to determine the star formation history of the local disk population. These models will also find application in the analysis of the period spectrum of white dwarfs.